On the Foundation of Interactive Knowledge

Formal knowledge theory for a single person has been extensively developed starting some thirty years ago. During the last ten to fifteen years it has become increasingly clear that these issues are of great importance to the interactive social sciences and in related areas; and that when there is more than one person, new problems arise which require treatment going beyond the one- person treatment. Roughly, these problems have to do with what the protagonists know about each other's knowledge and about the system as a whole, and what can and cannot be said about these matters within the system. These problems manifest themselves in various ways, depending on the formal model being used. For example within the standard "partition" model of knowledge, the problem is usually posed by asking, where do the particular partitions that are assumed come from, and does each player "know" the partitions of the others. This project explores these matters systematically and in detail. The concepts of subjective probability and rationality in multi-person contexts will also be treated. Applications to the foundations of interactive decision making, game theory, computer science and biology will be considered. The results of this research will be presented in a monograph. The monograph will be divided into three or four parts. The first part is devoted to the partition model of interactive knowledge theory. A syntactical or propositional approach to knowledge partitions is adopted by the investigator in contrast to the usual hierarchical method. The second part applies the same approach used for pure knowledge systems to probablistic "belief" systems. In addition to elementary propositions, propositional connectives, and knowledge operators, probability operators will be used. The rest of the monograph includes the following: irrationality, and/or lack of common knowledge of rationality; applications to equilibrium analysis in normal as well as extensive form games; games played by Turing machines; and applications to computer systems and biological systems, where the term "knowledge" needs to be properly interpreted.